Effect of Solvation and Hydrogen Bonding on Conformationally Fexible Molecules

John Cable of Bowling Green State University is supported by the Experimental Physical Chemistry Program to investigate hydrogen bonding in 1:1 clusters formed between various aromatic molecules and either water or ammonia. These studies concentrate on conformationally flexible molecules; by varying the aromatic moiety, effects of steric hindrance and structural distortion on the hydrogen bonding interaction will be examined. Mass-selected resonance enhanced ionization spectroscopy and dispersed fluorescence of the cluster expanded in a supersonic nozzle will be used to yield information on the excited and ground electronic states, respectively. A related theoretical effort involves simulations of the observed energy levels of isolated and clustered solutes for chararacterization of the detailed structural perturbations resulting from hydrogen bonding. The results of these investigations will provide a more detailed understanding of the factors that affect the strength of a hydrogen bond and how the electronic properties of a conjugated solute molecule can be modulated by structural distortion in order to optimize the hydrogen bonding interaction. Hydrogen bonding plays an important role in chemistry, from strongly influencing the physical properties of solvents to determining the structures of biological macromolecules. Although much weaker than ordinary covalent and ionic bonds, hydrogen bonds are of crucial importance to the molecular recognition processes that are significant in biological systems. These studies will improve the understanding of the common types of hydrogen bonds that are relevant to proteins and nucleic acids.